Tensor Categories and Unitarity

9970473
Kirillov
This research is concerned with the theory of tensor categories, in
particular, with the categories of representations of quantum groups
and affine Lie algebras arising in mathematical physics. The
principal investigator will work on the geometric realization of these
categories in terms of sheaves on configuration spaces. In
particular, he will work on a geometric construction of the unitary
inner product in such categories, which is extremely important for
physical applications. He will study the combinatorial identities
that arise, generalizing Macdonald's inner product identities to
affine root systems. The principal investigator will also work on a
book containing an accurate and complete exposition of the theory of
tensor categories, modular functors, and topological quantum field
theory, using as the main example the category of representations of
quantum groups at roots of unity, whose physical counterpart is the
Wess-Zumino-Witten modular functor.
This study is in the general area of representation theory of Lie
algebras and related objects, or, more generally, mathematical
structures appearing in physics (conformal field theory). This is a
very actively developing field, in which mathematics is greatly
enriched with the new ideas and intuition coming from physics.
Unfortunately, sometimes there is a large gap between the physical
ideas and mathematically rigorous construction or proof, which can
take years to fill. This project should fill some of these gaps and
pave the way to new mathematical discoveries.
***